Research Conference: Mathematical Theory of Networks and Systems

0139236
Rosenthal

The International Symposium on the Mathematical Theory of Networks
and Systems (MTNS) is a major international conference. It attracts
typically 400 mathematicians and other scientists working in theoretical
aspects of systems theory. The symposium is interdisciplinary and attracts
mathematicians, engineers and researchers working in all aspects of
systems theory. Mathematical methods which play a role in the areas
mentioned above stem from a broad range of fields of pure and applied
mathematics, including ordinary and partial differential equations, real and
complex analysis, numerical analysis, probability theory and stochastic
analysis, operator theory, linear and commutative algebra as well as
algebraic and differential geometry.

In August 2002 the MTNS symposium will be held on the campus of the
University of Notre Dame. Travel support will be provided by this award
for approximately twenty new researchers (graduate students and recent
doctoral recipients) and 2-3 international researchers needing special
assistance to attend this conference. The symposium program will include
plenary lectures, special topic invited lectures, mini-symposia, mini-
courses, special topic sessions and contributed papers. The symposium
will cover serious mathematical issues as well as some important applied
areas. Several broad application areas were selected: (1) Systems theoretic
questions in biology, (2) Applications in the area of telecommunications,
(3) Computational questions arising in control and systems theory and (4)
Systems theoretic questions in the area of mathematical finance. In each of
these important application areas 2-3 established researchers were asked to
organize a "Mini-symposium". This is a sub-symposium which typically
consists of a sequence of tutorial lectures as well as a sequence of invited
sessions each consisting of 4 research papers. The organizers had these
areas of research in mind at the time the plenary speakers and the special
topics speaker were selected.